A 3-D/4-D Computerized Model for Human-Machine Integration in Apparel Manufacturing Engineering

This research will investigate innovative technologies for the retail-apparel-textile industries. These are: (1) a three-dimensional/four-dimensional (maps and animation) computer program for guiding production workers in building quality, one-of-a-kind products, at a low-cost; (2) an integrated Computer Aided Design/Computer Aided Manufacturing program in which every human resource becomes a part of the whole industrial complex; (3) a database program for assessing, sorting, and matching every worker's skills. The model-maker will create the processes for the makers in the factory. Other Computer Aided Design/Computer Aided Manufacturing vendors can utilize the interface processes, that are being researched, to enhance their systems and make technology more acceptable to the apparel industry.